Analysis of a Trans-Atlantic CTD/Hydrographic Section with Acoustic Doppler Current Profiling at 11 Degrees North

Combined analysis will continue with data collected from a trans- Atlantic section at 11 Degrees North during March, 1989. Included are CTD profiles, water samples for chemical properties, continuous near-surface currents from an ADCP, and subsurface flow from SOFAR floats. Development of new techniques for synthesizing data will provide a better way to describe circulation in the Tropical Atlantic Ocean.